Computational Methods in Financial Engineering

Computational Methods in Financial Engineering
Mark Broadie, Paul Glasserman and Steve Kou

This project addresses computational problems in financial engineering.
Financial engineering deals broadly with the use of mathematical and
computational tools to model the dynamics of asset prices, to value and
hedge derivative securities tied to those assets, and to measure and
control the risks associated with these instruments. This project will
address three specific areas requiring innovative computational tools and analysis:
(1) high-dimensional stochastic dynamic programming problems embedded
in the valuation of American options;
(2) numerical methods for jump-diffusion models based on transform analysis
and asymptotics; (3) calculation of price sensitivities and related hedge
parameters and risk measures using Monte Carlo methods.

The emerging field of financial engineering draws on mathematics, statistics,
economics, and numerical methods to solve modeling and computational problems
arising in the financial industry. The US is currently a world leader in
this field, which is a source of competitive advantage in financial services.
This field is also a large and growing source of employment
for highly skilled individuals in the mathematical sciences.
This project is part of a larger network of research and teaching
activities through which the Principal Investigators interact with
researchers in industry and other universities to help shape and advance
the field of financial engineering. Financial engineering at Columbia spans
several departments; this project will facilitate interdepartmental
collaboration and help sustain a community of students and faculty from
different disciplines with shared interests.